Chemical Ecology of Resin Secretion in Dalechampia (Euphorbiacea): Radical Evolutionary Shifts in the Functions of Triterpenses?

Plant secondary chemicals mediate many relationships between plants and their mutualists and antagonists. The number and specificity of these plant-animal relationships generates much of the biodiversity of the tropics. Plants commonly use secondary compounds as defense against herbivores or as attractants for mutualists. Chemically similar compounds may serve different functions in related plants. The proposed research will elucidate a model system of plant-animal interactions by testing the hypothesis that terpenoid resins, which function as floral rewards for bees in most species of Dalechampia, function in the leaves, stipules, and floral bractlets of primitive species as a defense against herbivores and/or pathogens, and play no role in pollination. Primitive species of Rhopalostylis, according to the hypothesis, should defend flowers and leaves against herbivores with resin, while offering pollinators some other reward, such as pollen or fragrances. To test these ideas the proposed project will i) establish whether or not the terpenoid resins of glandless and gland-bearing species deter herbivores, by using resin extracts in feeding trials with natural herbivores; ii) establish whether or not the terpenoid resins inhibit microorganisms, by testing extracts in bioassays with microorganisms; iii) investigate the chemical relationships between the floral and vegetative resins by surveying and analyzing the compounds produced; and iv) make observations on the pollination of, and herbivory on, primitively glandless species of Dalechampia. Information from this study will give us greater insight into the chemical basis of plant-animal interactions, how such interactions evolve, and how novel mutualisms arise.